Technical Graphics Laboratory

This project permits this institution to offer a degree program in technical graphics, one that includes graphical representation for industry as well as CAD/CAM applications. The equipment that supports the project includes twelve (12) Macintosh II microcomputers and associated hardware and software to permit students to learn graphical concepts in a project-oriented studio environment. This award is being matched by an equal sum from the grantee.